SBIR Phase I: A Novel Varistor from Nanostructured Ferroelectric Materials

*** 9761203 Hu Nanomaterials Research Corp. will develop a novel varistor, from nanostructured ferroelectric materials. The innovation is based on a unique varistor behaviour observed in ultrafine-grained ferroelectric thin films. These varistors are expected to yield a new range of electronic applications based on the function of current regulation. ***